Double Ionization of Driven Diatomic Molecules

Abstract

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Efficient numerical methods, albeit classical, which were developed for atoms, to describe multi-electron systems which can not be treated by quantum methods, will be extended to molecules. Here the different electron and nuclear timescales add another level of complexity. This study will probe attosecond dynamics in these larger systems, offering a new perspective on the dynamics of electrons in intense fields. Hence this work will contribute new knowledge for the development of Attosecond Science, a new direction in applications of ultrafast laser science, with applications to biology, chemistry, physics, plasma science, and nuclear physics.